Definability and Automorphisms in Computability Theory

Abstract

Award: DMS-0245167
Principal Investigator: Peter A. Cholak

The principal investigator plans to study the relationship
between definability and automorphisms in various structures
arising in computability theory. Primarily, but not totally, he
will focus on the collection of all computably enumerable sets.
The principal investigator will also consider the collection of
all Pi01 classes and the computably enumerable degrees. A long
range goal is to provide a complete understanding of these
structures and their automorphisms and definable orbits. Some
related projects in computable structure theory and models of
second order arithmetic are also planned.

The main focus of these projects is on definability and
computability. These notions are both important in measuring the
complexity of an answer to a mathematical problem. Problems such
as "Is there a computer program which can solve all questions of
this type?" One develops an intertwined hierarchy of
definability and computability. Only answers which lay on the
lowest level are computable and even then they are not always
feasibly computable given today's computers. Answers of higher
complexity provide useful mathematical information, allow one to
test the limits of mathematical techniques, reveal whether the
wrong techniques are being used, and, in some very rare cases,
can be useful for encoding/decoding information.